BIC: Evolving Signal Processing Circuits from Biological Reaction Networks

The aim of this project is to understand how biological organisms process signals and how such
an understanding might impinge on the future development of man-made devices.
We normally associate computation with man-made devices, particularly the ubiquitous digital
computer or the lesser-known analog computer. However there are computational devices much
closer to home. All biological organisms are exposed almost continuously to a huge variety of
environmental changes and shocks. In order to survive such changes, living organisms have
evolved sensor proteins located on the outer surface of the organism which can detect all manner
of environmental changes. These sensor proteins are in turn connected to so-called signaling
networks composed of interacting proteins inside the cell. These signaling networks are
responsible to making an appropriate decision based on all the sensory inputs. What is not well
understood at this stage is the type of decision processing that is carried out by these networks. In
man made devices we employ a variety of techniques from digital computers to analog devices
to control our machines. Over the last fifty years or so, the design of sophisticated man-made
control devices has matured to the extent that almost all devices now have some kind of control
systems built into them. The reason why we are so good at designing artificial control systems is
that we have a thorough grasp of the underlying theoretical principles of control. The primary
technology that we used to build control devices is based on electronics. Walk into any book
store and one will find books on electronic design.
In relation to biological control systems we do not have the equivalent of an electronics design
handbook. As a result we understand very little about how biological control systems work, how
they carry out decisions and what the underlying principles of biological control are. Our
approach is to evolve on digital computers, artificial biological signaling networks. Depending
on what task the network is designed to perform, we evolve networks which will come closest to
achieving this objective. Examples include evolving a network which can be robust to sudden
changes in the environment, or conversely evolving networks which can quickly respond to
environmental changes. In addition other objectives will include common signal processing
techniques employed in electronics, for example we might evolve a network that can oscillate or
a network that can carry out some arithmetic. By these means we will generate biological like
networks which will have the capacity to carry out all the common electronic signal processing
tasks. The end results will be a large library of networks. From this library we will then reverse
engineer the networks to understand how they accomplish their evolved tasks. Finally we will
compare these networks to real biological networks to see if we can find equivalent 'designs'.
The ultimate goal is to write the 'electronics' design manual of biological signaling control
networks.
The work we propose in this application impinges on many areas of science. It combines work
from molecular biology, computer science, control theory, evolutionary algorithms, signal
processing and electrical circuit theory.
The engineering sciences will benefit from this work by being able to examine examples of
signal processing carried out at the molecular level and the biological sciences will benefit by an
understanding of the underlying control principles of real biological networks. In addition,
molecular based circuitry has to deal with noise (which is dealt with extensively in the
engineering sciences), this work may have an important bearing on the implementation of
nanotechnology based control systems.